Promoting Distributed Knowledge Systems

This project will initiative a process for integrating emerging perspectives relevant to several NSF-based initiatives that revolve around the development and broad application of network-based information systems. The NAS/CSTB will organize a roundtable to bring togehter executives from NSF and other federal agencies, private foundations, and other sources of private sector research support to facilitate interactions and possible collaboration. Its near-term goal is to foster information exchange and promote broader and more effective development of support for relevant research programs across key public and private sector organizations. In part this activity is convened to maximize the potential and new National Science Foundation Knowledge And Distributed Intelligence initiatives including knowledge networking, learning and intelligent systems, as well as the multi-agency Next Generation Internet, digital libraries, and universal access initiatives. Many relevant research programs rooted in information technology also embrace a variety of scientific and engineering disciplines, which complement computer science and engineering with insight into how people do or might use information technology.